Supporting Objects in Deductive Databases

This project will focus on the design and implementation issues of adding object identity, database schema templates, typing, and generalized database updates to deductive databases for increased modeling power and programming flexibility. All these features can be elegantly expressed within the framework of high order logic. The current logic programming and deductive database paradigm will be naturally extended to higher order logic by employing many sorted first order proof theory. The resulting data model should be efficiently implementable. Uniform treatment of data and logic program by the structuring and typing facilities will support the development of an expressive logic based database programming language, suitable for a broad range of applications.